SBIR Phase I: Long Lasting Organic Formulation to Effectively Manage Blood Sucking Diptera

This Small Business Innovation Research (SBIR) Phase I
project will develop a long lasting organic formulation to effectively manage and
suppress populations of mosquito vectors of disease. The banning of DDT and
other persistent mosquito larvicides several decades ago has created a major gap
in vector management that has yet to be effectively filled by generations of
environmentally friendly chemicals and formulations that followed. The
consequences are tangible to the human population worldwide. We are currently
experiencing more pain, suffering, and deaths from mosquito transmitted
diseases than when DDT was available. Biological larvicidal formulations have
been proven safe and effective in controlling mosquito larvae, with the caveat
that they have a very short field life which requires frequent reapplications to
sustain control, in turn making them too expensive for adoption by most areawide
vector control programs. Because of this, biological larvicidal formulations
are seldom used preventatively. This SBIR project will bridge this gap and
increase the longevity, and usability, of biological larvicides. Success will result in
direct mitigation of soil and waterways pollution commonly associated with
conventional pesticides for mosquito control.

The broader/commercial impacts of this research are, if
this SBIR project is successful, the development of a biological, long lasting
larvicidal formulation that will significantly change the way parasitic mosquitoes
are managed worldwide, making it much more effective, reducing disease and
suffering, and saving lives while significantly reducing non-target effects and
environmental pollution. This is a worldwide market opportunity of over
$2B/year.